Diffusive Transport in Porous Polymers

The controlled release of macromolecules from a porous polymer carrier is an example of diffusion through a porous medium; a complete understanding of the behavior of these systems in not available. A microstructural approach to the problem will be taken with the goal of elucidating the underlying physical mechanisms which determine the rate of transport in the porous network. The research involves a system for acquiring detailed microstructural data on the porous polymer devices. A detailed understanding permits the formulation of physically realistic models of the porous network; it will also provide a method for testing preliminary hypotheses. Release studies are also conducted for examining the kinetics of macromolecular release from the polymer devices. The major thrust of the project is exploratory experimentation on the physical mechanisms.